"Characterization of the Potential for Concentration of Toxic Substances in Ash Resulting from the Combustion of Municipal Waste"

This Minority Research Initiation (MRI) planning grant will support release time, travel and other related costs for the investigator to prepare a competitive proposal to study toxic substances in ash that results from the combustion of municipal wastes. Specifically, the research project will: (a) study the toxic nature of residual incinerator ash generated from the combustion of municipal waste; and (b) examine the suitability of developing technology to allow safe and cost effective disposal (or resource recovery). The principal investigator is a well-trained minority scientist who has several publications in refereed journals. The research will have a significant impact on resolving this Nation's waste disposal problem.